REU Site in Pure and Applied Mathematics at Oregon State University

This REU site award provides support for ten undergraduate
researchers in mathematics and mathematical computer science
working under the supervision of faculty advisors. The program
will run for eight weeks each summer during the years 1999, 2000,
and 2001.
The principal investigator organizes and supervises the program.
Three faculty members from the Mathematics Department and the
Computer Science Department will supervise student research
projects.

The students will attend a seminar and will be given information
about various areas of mathematics and computer science. The
projects that the students work on will be designed so as to make
the students familiar with the process of mathematical research.
The projects will emphasize the interaction between pure and
applied mathematics. Each student must complete a written report
on their research activities for inclusion in a proceedings of
the summer program. Some post-program support will be available
for the students to present the results of their research
at conferences.